Collaborative Research: Mediated Electrochemistry for Polymer Recycling

Professors John Swierk of the Department of Chemistry at Binghamton University (SUNY) and Elizabeth Elacqua of the Department of Chemistry at the Pennsylvania State University will investigate electrochemical methods to break sulfur cross-links in polymer waste. Cross-linked systems, such as rubber, pose a substantial waste challenge with no obvious solution. The goal of this research is to develop new strategies that use electricity to selectively remove sulfur cross-links from such polymers and repurpose them toward new composite materials. Results from this project will support advanced manufacturing strategies for rubber recycling and electrochemical methods in polymer chemistry. This work lies at the intersection of materials, physical, and inorganic chemistry and will support the interdisciplinary training of scientists at all levels. A core part of the program supports STEM teaching at the middle grades level (grades 3-6) and integrates teachers with extended summer research experiences. The program also facilitates regular classroom visits and an annual summer workshop based around polymer recycling.

This project aims to establish critical design principles for mediated electrochemistry that engage sulfur-based bonds and activate dynamic behavior in cross-linked polymers. The research program will target (i) the synthesis of molecular and macromolecular systems with modular S-content and functionalities; (ii) the investigation of their degradation using electrochemically-generated redox mediators; and (iii) application of these insights to selectively cleave and reform S-based crosslinks. The performance of new composite materials incorporating devulcanized rubber will also be pursued. Fundamental knowledge arising from this project would include novel insights into selective bond cleavage and functionalization, electroanalytical characterization of electron transfer, and the design of redox mediators, thus expanding the impact of this research well beyond polymer recycling.